Computer Simulation in Biology Laboratories: A Practical Method for Integrating Elements of the Scientific Process into Undergraduate Biology Curricula

Computers (Apple IIsi) and software (both simulations such as Bioquest material and scientific writing software such as CA- Cricket, Superpaint and Microsoft Works) are used to supplement hands-on laboratories with appropriate computer simulations and to give students greater flexibility in graphing, analyzing and presenting their laboratory results. Student independently formulate and solve a scientific problem, critically evaluate their data and report their experiments in a journal format. The equipment is used in four courses; Cell Physiology, Animal Physiology, Genetics, and Cell and Molecular Biology. The computers will supplement HPLC and spectroscopy equipment obtained through an earlier ILI grant.